Conference: NSF Student Travel Grant for the 2026 IEEE International Conference on Bioinformatics and Biomedicine (BIBM)

Bioinformatics and biomedicine research is fundamental to understanding complex biological and biomedical systems, improving health informatics, and advancing computational methods that support genomics, precision medicine, biomedical data science, and clinical decision support. The research requires close collaboration among multi-disciplinary teams of researchers in quantitative sciences, life sciences, and their interfaces. The 2026 IEEE International Conference on Bioinformatics and Biomedicinewill provide an open and interactive forum to promote multi-and interdisciplinary research and education in Bioinformatics and Biomedicine, facilitating the cross-fertilization of ideas and bridging knowledge gaps. Student travel support will enable emerging researchers to present peer-reviewed work, receive feedback, learn current methods, and build collaborations at the interface of computing, biology, and medicine. The award supports NSF priorities in artificial intelligence and biotechnology by facilitating the development of cutting edge tools to harness AI to tackle pressing problems in health care and other fields.

The scientific program will cover six synergistic themes on (i) Bioinformatics and Computational Biology of Molecular Structure, Function, and Evolution; (ii) Computational Systems Biology; (iii) Next-Generation Sequencing and High-throughput Methods; (iv) Cheminformatics and Pharmacogenomics; (v)Cross-Cutting Computational Methods and Bioinformatics of Disease; and (vi) Biomedical and Health Informatics. A special panel, the Bioinformatics Educational Workshop, will foster discussion on educational opportunities and barriers. The BIBM-2026 promises to have great scientific quality and broad impact, with world-renowned scientists as keynote speakers and invited speakers, contributed talks at a highly competitive acceptance rate, special issue publications in top scientific journals, as well as the broad participation of the research community serving on the Program Committee and the organizing committees for workshops, tutorials, and posters.